CAREER: Understanding the Effects of Large Language Models on Online Community Information Work

This project is about understanding the effect of content generated by large language models (LLMs) on people whose jobs involve assessing information online. Though LLMs have many potential uses, there are no guarantees that their outputs are correct: they sometimes "hallucinate" false text and/or can be tricked by cyber-attackers into doing so. This in turn poses risks to online information exchange. This project's goal is to model the risks that LLMs pose toward effective online discourse and develop tools to help information professionals assess LLM-generated online content. Through studying a variety of professional roles that interact with many different kinds of content, the research will create generalizable models of information risks posed by LLMs, as well as methods and tools for creating community-specific guides for assessing and managing LLM content risks. These tools, combined with planned educational and outreach activities, will help information professionals do more informed, effective work and benefit the roles and communities they serve.

The research plan starts with activities aimed at understanding the challenges that arise for information professionals with the increasing use of LLM-based content. Through interviews, co-design activities, and surveys across a variety of information-focused professions, the research team will develop an epistemological framework to characterize information risks posed by the use of LLMs. This framework will then be used to develop both proactive and reactive approaches to assessing and detecting risky LLM use. To support proactive planning, the researchers will develop threat modeling and red-teaming techniques that allow individual information professionals to assess the risks that arise in their own jobs and communities. To support reactive detection, the team will create customizable, mixed-initiative intelligent tools for identifying potential risky LLM-generated content that are well-tuned to their particular context and epistemic practices.